Positively and Non-Positively Curved Manifolds

Abstract

Award: DMS-0504534
Principal Investigator: Xiaochun Rong

Positive curvature and non-positive curvature have been frequent
subjects in Riemannian geometry, where mathematics from several
disciplines interact; such as differential geometry, analysis and
partial differential equations, transformation group theory and
topology. The PI is pursuing a research program concerning some
basic problems in these areas: 1. Interplay between positive
curvature (with Abelian symmetry) and topology. This project is
amplified by the amazing fact that among the manifolds of the
same dimension whose sectional curvature is between two positive
constants, all but finitely many admit (large) Abelian symmetry.
2. The semi-rigidity of the moduli space of non-positively curved
metrics on a closed manifold.

Mathematics is the foundation of natural sciences, and
differential geometry and Riemannian geometry is one of the most
important branches of mathematics. The PI is pursuing solving
some basic problems in this field which would have a broad
intellectual impact. PI will continue to actively pursue
collaborations with other mathematicians in US and abroad and to
speak at several national and international meetings a year.

The PI organized Riemannian geometry seminars in summers of
2001-2004, which were designed to provide a forum for the
dissemination of new ideas, in particular for graduate students.
The PI has had three papers with his graduate students and
postdoctoral fellow which were the products of the summer
seminars. The PI will continue the Riemannian geometry summer
seminars in the next three years. The PI has been writing two
advance graduate textbooks for three years (titled: ``The
convergence and collapsing theory in Riemannian geometry'' and
``Positive curvature, symmetry and topology''). He wishes to
finish the two books in 2-3 years. This will not only benefit
graduate students and researchers from these areas (due to the
lack of graduate textbooks in these topics) but also help to
advertise and disseminate Riemannian Geometry to students and
mathematicians in other related fields, by giving them a quick
picture of some of the research directions of Riemannian
geometry, and by showing them how the subject vitally interacts
with differential geometry, analysis and PDE, compact
transformation group theory and topology.